PECASE: Fundamentals Limits and Codes for M-ary Recording Channels

In conventional magnetic and optical recording, data is stored by saturating the media in one of two states. In M-ary recording, more than two recorded signals are used, allowing for larger storage capacity and higher data transfer rates. A number of M-ary recording channels are being developed for optical recording and a good deal of work has been done by the PI and others in this area. The primary objective in the research plan is to move to the next level in the understanding, modeling and analysis of channels, codes and signal processing for M-ary recording channels. The research plan addresses fundamental limits of M-ary constrained recording channels and new coding approaches which seek to achieve them. The teaching plan seeks to increase the number of trained engineers in signal processing and communications for recording and emphasizes close connection with and feedback from industry. The specific research and educational objectives are: 1) To integrate communications and optical models to better characterize the fundamental limits (i.e. channel capacity) associated with optical (both binary and nonbinary) recording channels. 2) To develop new methodologies for code design for M-ary channels whose constraints are typically difficult to deal with. 3) To develop new modulation codes for M-ary recording channels which exploit their three dimensional nature. 4) To develop new educational approaches that emphasize the interrelation of system components and help develop a broader perspective. 5) To emphasize interaction with industry and to take advantage of undergraduate and PhD co-op programs. 6) To continue developing outreach programs for encouraging research careers for undergraduates. The proposed research and educational activities will: 1) Educate and train a core group of researchers in the emerging area of M-ary recording both in fundamental limits and practical systems implementations. 2) Result in modulation codes that are c onceived and designed from a systems and practical perspective and achieve the largest known information density.